NMR Upgrade and Acquisition of Glove box for Undergraduate Research in Inorganic Chemistry

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) and the Major Research Instrumentation (MRI) Programs, the Department of Chemistry at Lewis and Clark College will upgrade an existing 300 MHz NMR Spectrometer and acquire a glove box. This equipment will enhance research in the synthesis of two classes of compounds: a) organometallic compounds for investigations of organometallic-promoted phosphoester bond cleavage; and b) ruthenium heteropolytungstates complexes for potential use as catalysts for oxidative degradation of hydrocarbon waste.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.